REU Site: A Summer Research Experience in Structural and Computational Biology and Biophysics

This REU Site award to Purdue University, located in West Lafayette, IN, will support the training of 10 students for 10 weeks during the summers of 2026-2028. Nurturing the careers of these beginning scientists with specialized training, mentored research experiences, and professional development will encourage pursuit of advanced degrees and research careers in academia, industry, and government, thereby reinforcing strong recruitment into STEM fields of study including structural and computational biology and biophysics. Studies show that students who actively engage in undergraduate research within life sciences perform at higher levels within the classroom and are more likely to pursue advanced degrees. This training program will provide advanced training for students who will be part of a more highly trained and diverse workforce within a STEM discipline that will enhance U.S. global competitiveness. Students will learn how research is conducted, the ethical and responsible conduct of research, how to disseminate their results to a general audience, and will present the results of their work at scientific conferences. Assessment of the program will be performed using SALG and URSSA online tools. Students should apply to the REU site using NSF ETAP (Education and Training Application: https://etap.nsf.gov). The training students will receive is aligned with the NSF priorities in Biotechnology and AI.

This REU program is designed to establish a framework that integrates research projects aimed at studying the structure and function of macromolecules with in-depth workshops designed to provide theoretical and practical training in contemporary structural biology techniques and biophysical methods. Students will gain training in methods such as computational biology, X-ray crystallography, nuclear magnetic resonance spectroscopy, and cryo-electron microscopy. Each trainee will leave the program with a solid foundation and understanding of the various structural biology methods regardless of the expertise within their host lab. These discovery-driven studies provide the molecular blueprint for the atomic structures of biomolecules which fuels subsequent hypothesis-based research. Projects included in this proposal focus on the structure and function of membrane protein machineries involved in signaling and nutrient import, viruses and viral enzymes, cancer-related proteins, CRISPR machinery, and transporter proteins. This REU program is hosted by the Department of Biological Sciences. Students that are in their sophomore or junior year are encouraged to apply.